Purchase of X-Ray Diffractometer and Computing System

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at Colorado State University acquire an upgrade of their computing facilities and the x-ray diffraction laboratory. Among the areas of chemical research that will be enhanced by the acquisition are the following: 1) New Models for the Active Site of Cytochrome c Oxidase, 2) Total Synthesis of Natural Products and Development of Synthetic Methodology, 3) Asymmetric Bond-Forming Reactions, 4) The Synthesis and Study of Biomedically Important Compounds,and 5) The Synthesis and Characterization of Reactive Metal Complexes. Single crystal x-ray crystallography is the most powerful analytical method for structure determination of solids. In synthetic inorganic, organic, bioinorganic and organometallic chemistry, single crystal x-ray diffraction is an invaluable tool to characterize molecular structure. The information gained from the knowledge of the molecular composition and structure helps to develop new reactions of potentially general interest in catalysis or synthesis.